Oceanographic Instrumentation

9618917 Knox This award to University of California at San Diego will provide new instrumentation for oceanographic studies, new shipboard computers and new shipboard analytical instrumentation for use on the research vessels Revelle, Melville, New Horizon and Sproul, as well as on other vessels by the Oceanographic Data Facility. These vessels are operated by Scripps Institution of Oceanography as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist ocean researchers conduct studies throughout the world ocean in 1997 and future years. ***